Calculus on the Web

Mathematical Sciences (21) Over the last two years, the principal investigators have developed and implemented Calculus on the Web (COW) - an interactive Internet-based modular learning system for the study of calculus, including practice of basic skills and techniques, and "hands-on" experimentation with basic concepts. The COW environment is freely accessible to either registered users or anonymous visitors. This project is completing the COW environment to address a full three-semester sequence in basic calculus by: (1) creating new module structures that broaden and diversify the COW as a complete, on-line textbook; and, (2), further developing the "intelligence" and "human" character of COW's logical, syntactical and mathematical analysis and of its user interactions. Testing of the environment involves a variety of institutions and includes a secondary school component. Evidence also suggests that this particular online environment helps women students engage with the subject of calculus at a high level of interest.